Evolutionary Biology at the American Museum: Undergraduate Research Experience in an Interactive Environment

This award provides continued NSF support for the Research Experiences for Undergraduates (REU) program in Evolutionary Biology at the American Museum of Natural Hi story. Drawing on the research and teaching expertise of the Museum's scientific staff, the program revolves around projects carefully designed to introduce undergraduate level students to the excitement and challenge of original research in Evolutionary Biology. Included in the program structure is a series of weekly meetings at which students will discuss their research, present informal progress reports, and take part in discussions and seminars on graduate and research career opportunities. A special lecture series, in which eminent evolutionary biologists will be invited to address the REU students has been planned to supplement their roundtable discussion series. At the end of the program, students will participate in a seminar where they will give a formal presentation of their work. Students will be encouraged to continue regular contact with their Project Supervisors and prepare their research results in the form of joint authored papers for submission to professional journals. The AMNH will institute a follow-up program for REU participants aimed at encouraging them in careers in science.